On-Line Extractive Fermentation Processes

Fermentation technology can be used to convert hydrocarbons, wastes, and renewable materials (e.g., crops and trees) into complex organic materials, such as antibiotics and enzymes, and to single-cell protein, an alternate food source. To help make these processes economically competitive, this study focuses on two problems: as product concentration increases in a fermentation reactor, microbial activity is inhibited and the product can be degraded. This process attempts to avoid these problems by continuously removing product from the reaction mixture. This is accomplished by adsorbing the product as it is formed onto a solid polymeric adsorbent which is introduced directly in to the mixture. The physio-chemical and biochemical behavior of a model fermentation process in the presence of such an additional non-aqueous phase will then be analyzed.